Development of a Decision-Analytic Methodology for Definition of Standards of Disclosure

One of the most critical areas where law and medicine intersect is on medical informed consent. From a scientific standpoint little is known about the range of information that should be disclosed to patients to enhance their ability to make an informed decision. Both theoretically and methodologically, there is need for an analytically based approach to enable such decisionmaking. Dr. Fischhoff and his colleagues are seeking to develop such an approach to disclosure that is applicable to physicians' legal obligations to insure informed consent from patients. Their work aims to model quantitatively the variation in evaluations of possible health outcomes of patients. The research draws on a new technique whereby logistic regression is used to explain the variable contribution of input information to decision variation in a Monte Carlo simulation of a model. This method will produce an objective, "reasonable" range of subjective differences. These objective values will then be applied in a decision analysis modeling of several medical procedures. This study promises important advances. It will show the strengths and limitations of the analysis and permit the further development, generalization, and implementation of this approach within the medical-legal setting. Also, it is an essential precursor to examining the ways in which the law can accommodate quantitative analyses underlying professional disclosure practices.